U.S.-Slovak Chemistry Research on the Role of Oligosaccharides in Nonenzymatic Browning (The Maillard Reaction)

9507510 Feather This U.S.-Slovak cooperative research project between Dr. Milton Feather of the University of Missouri-Columbia and Dr. Jan Hirsch of the Institute of Chemistry, Slovak Academy of Sciences, will address a series of disaccharides, as starting compounds in the Maillard reaction (nonenzymatic browning), a naturally occurring reaction between sugars and proteins and/or amines. These sugars will be used to study the effects of position and substitution of the nonreducing residue on the course of the reaction. In the process, the researchers intend to chemically synthesize several series of disaccharides derived from D-xylose and D-glucose to convert them into Amadori compounds (1-amino-1- deoxy-2-ketose sugar compounds). These compounds will then be studied for degradation reactions. Results are expected to provide insight into far ranging natural processes such as those that affect food flavor and aroma production to an in vivo reaction involving protein modification related to aging and diabetes. This biochemistry project in organic dynamics fulfills the program objective of advancing scientific knowledge by enabling leading experts in the United States and Eastern Europe to combine complementary talents and pool research resources in areas of strong mutual interest and competence. ***